Dissertation Research: Physical Characteristics of Populations in the U.S., Paraquay, and Brazil

Evidence from psychology and anthropology, together with advances in evolutionary theory, suggest an array of testable hypotheses about cross-cultural variations and similarities in standards of physical attractiveness. This project will study criteria and consequences of physical attractiveness in the United States, among Ache Indians in Paraguay, and among urban and rural people in Brazil. The project will test several current hypotheses about physical attractiveness: (1) There are universal criteria of physical attractiveness related to age; (2) the features considered attractive in a population are those closest to the mean for that population, and (3) selection may act to increase physical variability within populations via assortative mating and between populations via preference for exaggerated features. The results of this research will help understand how standards of physical attractiveness develop and the implications of this development for current human variation.